CAREER: Accessing Shared Objects and Routing in Distributed Environments

The research component of this project focuses on two fundamental
distributed network problems. The first problem is that of devising
an efficient method for accessing shared information (objects) in a
distributed scenario (Problem A); the second problem is probably the
most fundamental problem that arises in any communication network,
namely that of devising efficient point-to-point routing protocols
(Problem B).

More specifically, the PI proposes to accomplish the following
research items:

- to deliver solutions to Problem A in fixed-connection networks,
taking into account several important network parameters -- such as
link congestion, dynamic link costs, and multiple representations of
objects -- and in cellular and ad-hoc wireless mobile scenarios.

- to deliver solutions to Problem B in conjunction with Problem A,
with the aim of minimizing the cost of accessing an object.

- to deliver solutions to Problem B on its own, in wireless mobile and
fixed-connection scenarios.

Not surprisingly, the problem of accessing shared objects and the
routing problem in distributed environments are strongly related in
many ways. For example, they are directly related in dynamic
scenarios. Therefore the PI anticipates that studying these two
problems together in mobile scenarios will help devise better
solutions for both problems.